Thom Polynomials for Group Actions and Singularities

Associated with an invariant subvariety of a representation we
consider its cohomology class in equivariant cohomology, and call it
the Thom polynomial of the variety (``singularity''). Thus, the Thom
polynomial is a G-equivariant characteristic class. Tracing back the
definition of equivariant cohomology we obtain that the knowledge of
the Thom polynomial of singularities reduces global singularity
theoretic problems to homotopy theory (namely, to the computation of
the characteristic classes of the underlying topological situation).
Thom polynomials compute the cohomology class of the locus in a
parameter space over which an object (map germ, differential form,
arrangement, a bundle, a digaram of linear maps, etc) degenerates. A
promising direction is the search for the corresponding good notion in
extraordinary cohomology theories, the computation of these
extraordinary Thom polynomials and finding topological applications.
Another important direction is working out global singularity
theory of geometrically or physically relevant representations, such as
Dynkin quiver representations, surface bundles, multisingualrity loci
over the complex and the real numbers, hyperplane arrangements, as
well as their connections to degree, resultant and discriminant
formulas. In many of these cases one expects different positivity
properties of the Thom polynomials, which can contribute to the newly
emerging bridge between geometry and combinatorics. The third goal is
to explore the indirect usage of Thom polynomials in Geometric
Invariant Theory. Here Thom polynomials can compute various non-
stability loci of representations, hence they give natural,
geometrically defined relations in the cohomology ring of the G.I.T.
quotients.

In various geometric and topological situations singularities occur
for global reasons. That is, the global topology of a space, a
manifold, a variety or a map forces some singularities to occur. (A
trivial example is the global topology of the Klein bottle which
forces double points when mapped into 3-space.) This global behaviour
of singularities is governed by their Thom polynomials. If we
substitute global topological invariants into the Thom polynomial we
obtain the number of singularities forced by topology. This general
point of view contains several mathematical areas as special cases,
among others ``degeneracy loci formulas'' of algebraic geometry,
immersion and general multiple point formulas of differentaial
topology, and the theory of Schur, Schubert and quiver polynomials of
algebraic combinatorics. Thom polynomials, however, are notoriously
hard to compute. Although some powerful methods are known, some by the
author, no universal method has beed found. We propose to study the
basics of Thom polynomial theory, including possible generalizations
to other cohomology theories. Another challenge is the understanding
of the interior structure of natural infinite series of Thom
polynomials. This direction promises to establish connections between
the different areas that play roles in different computational
approaches, e.g. algebraic topology, symmetric functions,
interpolation theory, localizations, Groebner basis theory.
Another main goal is to find applications of computed Thom polynomials
in topology, geometry and invariant theory.